Examination of the Relationship Between the Magnetic Hysteresis and Mechanical Properties of Steels

9532056 Jiles This award is to provide a better understanding of certain magnetic properties of steels that can be used for the nondestructive evaluation of its mechanical state. a theoretical model will also be developed to permit the phenomena to be used for safety predictions of steel structural members. Prior research has demonstrated the phenomena but its physical basis is poorly understood and how to use it under service conditions is therefore needed. The key idea is to use both surface and bulk measurements to assess the residual stress in these materials. Magnetic data has been shown to be highly sensitive to the mechanical condition of the material. ***